Wildebeest forage acquisition in fragmented landscapes under variable climates

Migratory grazers must move between ranges each year, and make daily movements to locate food, but landscape fragmentation and other obstacles to movement are increasing. At the same time, climate change is making droughts more frequent and extreme, requiring animals to move farther to locate sufficient food. How wildlife populations are affected by this combination of effects is of interest. Researchers from the U.S. and Kenya will address this topic in three conservation areas in Kenya. To track movements of wildebeest across the landscape, the researchers will place 45 collars, which contain global positioning devices, on the animals. Future landscape fragmentation in the areas will be modeled. A model will also be constructed to allow researchers to simulate movements of individual wildebeest within each population. Landscape fragmentation and frequency of droughts will be varied in simulations to quantify potential effects of land-use intensification and climate change on migratory wildebeest populations.

Wildebeest migration fascinates the public, but remarkably little is known about individual movements, and how fragmentation and climate change interact to alter movements. The results will shed light on effects on other mobile grazers as well, including livestock, and address the sustainability of current practices in landscapes shared by wildlife and humans. This research will facilitate the development of novel modeling approaches. Other broader impacts include training of three graduate students, which will include international experience, and incorporation of research results into university courses. In addition, information will be shared with land managers and citizens from Kenya and the U.S.